U.S.-China Cooperative Research (Geol.): Geochemical Studiesof the Massive Sulfide Gold Deposits of the Tongling District, Anhui, China

This proposal on "Geochemical Studies of the Massive Sulfide Gold Deposits of the Tongling District, Anhui Province, China," between Drs. James R. Craig and Robert J. Bodnar of the Virginia Polytechnic Institute and State University and Messrs. LIN Gen Fan and WAN Xin of the East China Geological Exploration Company of the Chinese Ministry of Metallurgical Industry (MMI), is jointly sponsored by NSF and by the Chinese MMI. This joint research aims at a detailed geological investigation into the ore deposits of a major, but little known, metallogenic province in east central China, the Tongling area of Anhui province. This area contains a large number of skarn and stratabound massive sulfide deposits that contain mineable or potentially mineable quantities of base metals and gold, specifically copper gold skarn deposits, stratabound copper gold deposits, and gossan gold deposits. The investigators seek to define the conditions under which these deposits formed and to determine if the two different deposit types are genetically related. To achieve this, detailed petrographic and electron microprobe analyses of ore and gangue minerals will define the mineralogy and mineral chemistry within the deposits and seek to establish a comprehensive paragenetic sequence. At the same time, detailed fluid infusion studies, including standard microthermometry and laser Raman analyses, will define the composition and physical state of the mineralizing fluids. This study of gold deposits in distinctly different geological settings and apparent genesis provides an opportunity to discover new aspects of the geochemical transport and deposition of gold. Specifically, study of these ore deposits may provide valuable information about the evolution of gold bearing hydrothermal systems, by exploring the relationship between deposits that are clearly related to igneous activity, such as the skarns, and those that are hosted entirely in sediments (the stratabound deposits) and spatially unrelated to an intrusive body. The new insight into gold ore genesis promised by this research could lead to new exploration strategies and techniques useful both in the United States and in China.